Routing, Wavelength Assignment, Dimensioning and Performance of Optical Networks with Multicast Service

Optical communication networks employing wavelength division multiplexing can support several
communication sessions using a limited number of wavelength channels. The employment ofwave-
length reuse in different parts of the network contributes to the increase in the number of sessions
that can be supported. As such, these networks can provide a means to serve those applica-
tions which individually or collectively require large amounts of bandwidth. An important class
of services with such property is the class of multicast, or multipoint traffic, which requires the
delivery of data from the source to a group of destinations. Although a few studies have addressed
packet-switched multicast services in broadcast-and-select optical networks, the topics of routing,
wavelength assignment, dimensioning, and performance of circuit-switched multicast services in
wavelength routing optical networks have received little attention.
This project deals with multicast services in optical networks, with and without wavelength
converters. Such applications can be served using wavelength routing networks. The project has
several objectives. First, we would like to develop multicast tree construction algorithms for optical
networks which take into account the optical network constraints into account, such as thepower
budget, wavelength collisions and wavelength continuity, aswell as the cost and type of splitters and
wavelength converters. Optimal network provisioning and dimensioning under multicast service,
given the traffic demands and cost constraints, is another objective. We also plan to investigate the
possibility of formulating a joint problem for the optimal provisioning, and the optimal wavelength
converter and splitter placement. It is also planned that routing, and wavelength selection algo-
rithms will be developed for multicast services in optical networks. It is also planned to study the
effect of these algorithms on the dimensioning and performance of the network. All this requires
construction of accurate analytical models for the evaluation of call blocking probabilities under
different routing and wavelength selection algorithms. As the efficient support of multicast traffic
requires the branching of the traffic at several points in the network, these models are expected to
be very involved, especially that several standard independence assumptions cannot be used in this
case. In addition to general performance models, bounds on performance will be established, which
will provide a guide to the provisioning and dimensioning of networks for multicast service. Such
bounds will be established through the identification of extreme network topologies which serve to
provide these bounds.
The results of this work are expected to advance the understanding of the behavior of optical
networks under futuristic, yet more involved, traffic conditions. At the same time, these results
will contribute to the design and dimensioning of such networks.